RUI: Measurement of Hyperfine Interactions in Small Molecules

Hyperfine spectra will be observed in sequences of vibrational and rotational states in small molecules, such as alkali hydrides, or hydroxides, using a high-resolution molecular beam electric resonance spectrometer. These spectra will provide improved values for hyperfine interaction constants, to be compared with those obtained from theoretical calculations of electron wave functions. Systematic variations of the interactions with isotopic substitution, and between the different alkali halide molecules will be examined. Special emphasis will be given to the rubidium salts for which experimental work has already begun, and for which previous hyperfine studies are minimal. Extension of these studies to molecules such as indium and gallium monohalides will be explored.